Heterogeneous Network Traffic Modeling and Analysis in Wavelet Domain

As multi-media traffic begins to dominate broadband networks, accurate modeling of video and data traffic becomes crucial to many important network applications. Video and data traffic has recently been found to possess complicated self-similarity that invalidates previously developed traffic models. One of the most important problem is how to develop computationally efficient and yet accurate models which could capture the complicated statistical properties of video and data traffic for network design/control. Our objective of this research is to develop a unified model which is (1) able to model heterogeneous multi-media traffic including VBR video and data, (2) computationally efficient, and (3) feasible for analysis. To accomplish our goal, we propose to use wavelets. We will show that although heterogeneous multi-media traffic has the complicated short- and long-range temporal dependence, the corresponding wavelet coefficients are no-longer long-range dependent. Therefore, simple methods can be used to model network traffic in the wavelet domain. In particular, independent wavelet models have shown to be sufficiently accurate, parsimonious, and have the lowest computational complexity attainable. We will focus our efforts on investigating how to use independent wavelet models for analysis including anto-correlation, and buffer loss rate. We will also investigate how to apply wavelet models to network control such as admission control.